A Computing Center for Laboratory-Based Education in the Quantitative Social Sciences

This award provides funds to the Rochester Center for Economic Reearch at the University of Rochester the help purchase equipment which will be used to teach quantitative social sciences, specifically economics and political science. Students currently get little exposure to the quantitative aspects of economics and political science because of the lack of a centralized facility for this purpose. As a result, many do not have a very good idea of the nature of quantitative research in the social sciences. The funds from this award will allow the development of laboratory- based undergraduate education in this setting. Innovative classroom applications such as market experiments and model simulation, as well as the expansion of traditional applications in statistics and econometrics will be developed. This facility should serve as a model for similar facilities at other institutions. In addition, students will gain a better understanding of the nature of quantitative research in the social sciences, and will therefore be able to make more informed decisions about choosing careers in research and/or teaching. The grantee is matching this award with non-Federal sources.